Presidential Young Investigator Award: Analytical and Computational Investigation of Viscous Fluid Flows - Separation and Transition to Turbulence

Two themes are to be addressed in this investigation. The first is an extension of earlier work on laminar massive separation in two-dimensions to include unsteady phenomena and three-dimensional configurations. The second is to further explore the earlier interaction model into the regime of transition to turbulence and turbulent separation.